Institute in Microbiology and Human Genetics for Biology Teachers in Southern Illinois and Adjacent State Areas

This project will deliver in-service training in microbiology and human genetics and will offer training in science teaching strategies to support these areas. Twenty-five high school biology teachers who need to update and improve their biological science content and instructional backgrounds will be invited to attend. The program will consist of three phases. Phase I will be an Academic Year Program during 1986-87 and will consist of nine full-day Saturday meetings. Phase II will be an eight-week resident Summer Program during June and August of 1987. Phase III will be a 1987-88 Academic Year Program of nine full-day Saturday meetings. A two-day meeting of all participants will be held during April of 1988 to allow participants to consult with Institute faculty and to share teacher-developed instructional materials. Two or three site visits will be made to each participant by the faculty.